Support of Research on Load Balancing in Distributed Computer Systems by Donald Towsley at U of Mass-Amherst

The purpose of this research proposal is to conduct an extensive theoretical study of load balancing for distributed systems. The goal of load balancing is to utilize the computation resource in a distributed system efficiently. Typically this is done by transferring jobs that are submitted at a heavily loaded node for remote execution to a more highly doubled node. The overall purpose is to help transform the "art" of load balancing into a more precise and scientific endeavor and to increase the understanding of the general resource-sharing problem. Distributed systems of computing are being increasingly impartial, and therefore efficient methods for balancing the work among the processor need to be developed. Numerous heuristic approaches to this problem exist, and more continue to be developed. The work in this proposal is an attempt to establish a theoretical basis for load balancing. All of the investigators in this research project have published in the general area; they are highly competent to conduct the research. The research project is being sponsored primarily by the Naval Research Laboratory under the direction of Dr. Phillip Hwang.